Project for Leadership Enhancement, Application, and Dissemination in Science (LEADS)

The Project for Leadership Enhancement, Application, and Dissemination in Science (LEADS) will educate twenty excellent teachers of science (called primary leaders) to lead workshops for sixty selected qualified elementary teachers (called secondary leaders) and twenty administrators who will go back to Los Angeles area school districts to lead science education programs they helped design. Beginning in January 1988, primary leaders will attend ten sessions of training, developing a handbook and workshops. In the summer of 1988, school districts will nominate a team of three elementary science teachers and an administrator, who will attend a four week workshop in biology, earth science, chemistry and physics at UCLA with lectures by scientists on the staff of the University. The primary leaders will run the workshops and perfect the handbook. In the 1988-89 academic year, the school districts will arrange workshops for their science teachers using the secondary leaders.